Connection to NSFNET

9523244 Jackson Sojourner-Douglass College requests support from NSF for connection to the Digital Express Group Network (DIGEX). DIGEX, a midlevel network in the in the Baltimore area, will provide operations management and information services and it will give the campus access to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States. The campus needs the Internet connections to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of the Sojourner-Douglass College as well as the community in general.